POWRE: Visualization and Modeling of Complex Geophysical Datasets: Retooling for the Future

Humphris/00-74846
This POWRE award provides funding to allow the PI to develop an expertise in MATLAB and to develop modules for her research needs. The PI has returned to a full-time research program after many years as an administrator and needs to acquire technical skills in data manipulation so that she can successfully analyze and visualize the complex datasets that her research generates. She would like to spend several short periods focussed on learning the software and data manipulation techniques during an 18-month period. Using these modeling tools, she will relate variations in the physical and chemical characteristics of hydrothermal fluids and the distribution and nature of hydrothermal precipitates to their geotectonic setting.